Mathematical Sciences: Nonholonomic Control and Gauge Theory

9400515 Montgomery The research entails differential-geometric techniques applied to optimization and related problems in control theory. The theory of distributions is considered as the model of the control system up to feedback equivalence. Singular geodesics within these systems will be analyzed. The research has potential applications to micromotor systems and robotic engineering.